Workshop on Synthesis of Transient Climate Evolution of the last 21-kyr (SynTraCE-21); Providence, Rhode Island; October 2012

This award will provide travel funding for participants of the Workshop on Synthesis of Transient Climate Evolution of the last 21-kyr (SynTraCE-2). Newly developed CCSM3 simulations will be used as a base for a data synthesis and model comparison workshop that will focus on critical themes in tropical paleohydrology, global deglacial temperature change, and coupled climate-vegetation changes during the last 21,000 years. The workshop will feature group discussion and working group activities that will develop the critical themes into targeted questions that can be answered through data synthesis and model comparison, and developing clear strategies for addressing those questions.

This workshop will bring the community together to chart a path towards addressing some of the most important topics in paleoclimate in the last 21,000 years. Attention will be paid to ensure participation and attendance by underrepresented groups.